Influence of bonding on the Static and Dynamic Behavior of Grouted Sand

The research program used both an experimental and analytical approach to investigate the effectiveness of grouting in modifying the behavior of sand under static and dynamic loading conditions. It is anticipated that this research will lead to a better understanding of the interactive role of grout in grouted sand, and a representation of grouted sand behavior in terms of its constituent properties and the interaction between those properties. A wide spectrum of grouts from strong and brittle to weak and ductile will be investigated. A grout quality rating system will be developed based on the working properties and mechanical properties of grouts. This will help in systemati- cally evaluating the advantages and disadvantages of old and new grouting materials. Bonding between the grout and the sand will be studies under tension, shear and mixed-mode loading using various test configurations. A biaxial model test will be utilized to study the composite behavior of grouted sand in terms of the behavior of grouts in soil pores, particle rolling and sliding, and initial and progressive failure with different particle size and cluster arrangements. Chemical and long term properties (time dependant) of grouts and grouted sand will be investigated. Modeling of stress-strain-time relationships and failure criteria for grouted sand will be done using the continuum approach, the composite approach, and the probabilistic approach. Factors such as irrecoverable strain, hysteresis and volume changes will be incorporated. Fracture mechanics concepts will be introduced to explain some of the observed brittle behavior of grouted sand including modes of failure.